The Panarctic Fauna and Floras Project: A Workshop

A joint U.S.-Soviet workshop will attempt to identify, develop, and coordinate databases on arctic flora and fauna. There is at present no coordinated system for retrieving such data or to record new data about as yet undiscovered species in the arctic. The ecology of the arctic regions is extremely fragile and susceptible to stresses caused by economic development and global climate change. The objective of this workshop is to begin laying a baseline of data about arctic ecology for subsequent studies of biodiversity and global climate change. The meeting is being organized by Dr. David Murray of the University of Alaska at Fairbanks and Academician Vladimir Sokolov of the Institute of Evolutionary Animal Morphology and Ecology of the U.S.S.R. Academy of Sciences. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.